Genetics of Sperm Migration and Gamete Recognition in Caenorhabditis elegans

9305058 L'Hernault Motile cells can move toward a target site, where they interact with other cells found at this new location. Sperm migration and subsequent sperm-egg interactions in the nematode Caenorhabditis elegans offers an attractive model system in which to study the genetic control of these phenomena. There are mutations in seven known genes which result in motile spermatozoa that are incapable of fertilization. Mutations in three of these spermatogenesis- defective genes are known to produce cytologically normal sperm that are motile, but defective in sperm migration toward the normal site of fertilization and in sperm-egg interactions at that site. These genes will be subjected to detailed cell biological, genetic, and molecular analyses. Specifically, mutants will be analyzed by electron microscopic and other cell biological techniques to reveal any obvious alterations in either sperm structure or sperm interactions with oocytes. Additional alleles will be recovered and the null phenotype will be defined for these three genes. Alleles that will aid in the molecular cloning of these genes will also be sought. Cosmid transgenic rescue will be employed to localize one of these genes on the available C. elegans physical map and permit its molecular cloning. These studies should reveal how sperm recognize their location in the reproductive tract, move towards oocytes, and subsequently fertilize them. ***